Postdoctoral Research Fellowships in Chemistry

Dr. Roger B. Ruggeri has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Ruggeri's doctoral degree was from the University of California at Berkeley under the supervision of Professor Clayton H. Heathcock. Dr. Ruggeri intends to continue research at Yale University under the sponsorship of Professor Samuel Danishefsky. Dr. Ruggeri's area of postdoctoral research will be the development of new methods of synthesis of oligosaccharide residues for glycoproteins and glycolipids. Oligosaccharide residues are specificity transmitters in molecular biology. The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.